Improving Mathematics Education Through Site-Based Change

The University of California, Santa Barbara, will develop and implement classroom curricula, both content and methods of instruction, through site-based change over a period of three years. During the first year, the project will initially involve seven schools from Ventura and Santa Barbara Counties. This will be expanded to 13 in year two and to a total of 19 schools in the third year. Teaching specialists, classroom teachers who have been selected and trained to act as resource persons and trainers for their colleagues, will serve for one year on a rotating basis. The project provides an opportunity for administrators, parents, the community and teachers to work together. It provides training and ongoing support for a cadre of lead teachers, to develop methods that assess student understanding. The activities of the Tri-County Mathematics Project and the UCLA Partnership have been incorporated in the project. Much of the in-school activities will be carried out during one released day each month and six hours per month of after- school meetings.